Ultrasensitive Molecular Detection for Separations by Condensation Nucleation Light Scattering

9311427 Koropchak This grant in the Analytical and Surface Chemistry Program is for the development and characterization of an ultrasensitive, universal detector based on condensation nucleation light scattering. The detector will be coupled with chromatographic separation techniques that provide molecular specificity. The detection mechanism involves the creation of an aerosol from the chromatographic column effluent, removal of the mobile phase solvent, followed by condensation nucleation with argon which increases the analyte particle size to about 10 micrometers. This produces very effective light scattering particles, and significantly enhances the sensitivity of the detector. This device could be a universal detector for both HPLC and SFC. %%% Professor Koropchak and his students will investigate the potential applications of an aerosol-based, universal detector for liquid and supercritical fluid chromatography. ***